SGER: An Assessment of Norwegian Fjords for High-Resolution Climatic Records

Summary: This research requests funding for an exploratory field effort to confirm the existence of and date the extent of laminated sediments in Norwegian fjords. Multicorer samples will be taken in seven selected fjords. Radiometric dating and assessment of benthic foraminifer faunas in recovered sediments will be done to determine suitability of the material for detailed paleoclimate studies.